Research in Manipulating Fractal Images and Fractal Analysis

The world of networked computers has resulted in an explosion of digital information. This causes a problem in both transmission and storage of this information. Since "a picture is worth a thousand words", much of this information is in the form of image data. However, pictures require much more data to store than words. Thus, it is necessary to reduce this storage requirement somehow. Many different ways of "compressing" this information have been discovered, among them one that involves the use of fractals. Fractals provide a convenient way of describing natural phenomena, thus they have found many uses in various technical fields. Fractals have proven to provide an efficient scheme to compress images, comparing favorably with other popular methods. This project will take the next step -- using fractals as both a compression tool as well as an analysis tool. Given image data comresses using the method of fractals, it is natural to try to use the fractal description to analyze the image. One would like to extract parts of the image for processing -- say to recognize a face in a picture. Another example would be to use the fractal description of an image of a rock face to recognize the rock type or to predict physical properties of the rock. This research project will develop methods to use the data from a fractal compressed image to extract further meaningful information about the image. Use fractals to compress as well as analyze information. This GOALI project is jointly supported by the MPS Office of Multidisciplinary Activities (OMA) and the Division of Mathematical Sciences (DMS).